Modeling and Studies of Auditory Cognition

Many speech sounds and musical tones are composed of harmonics, which are frequencies that are roughly integer multiples of the lowest frequency present. The lowest or fundamental frequency of a harmonic sound usually determines its pitch. Yet when the fundamental frequency is removed while the upper harmonics remain intact (as is the case for low voices heard over the telephone), the pitch remains unchanged. Furthermore, shifting the upper frequencies causes the pitch to change in complex ways. This research will involve the refinement and testing of a theory of auditory perception that accounts for these and other phenomena. The theory postulates that as a result of the properties of auditory neurons and general principles of neural connectivity, exposure to speech results in the neural encoding of harmonic patterns. These neural encodings in turn filter the sounds we hear so that frequencies that are blocked or distorted during transmission are effectively restored by the auditory system. The research will test the theory using computer simulations of a neural-net model and using perceptual experiments. Understanding how the auditory system recognizes sound patterns may in the future guide the development of "smart" hearing devices that can compensate for selective loss of auditory function.